Crystal Chemistry

A program of experimental and theoretical crystal chemistry is proposed. The experimental part consists of synthesis by solid- state methods and characterization, principally by X-ray and neutron diffraction, of new solid ternary nitrides and nitride- fluorides of the metallic elements. Materials will be screened for interesting electrical and magnetic properties. The theoretical part consists of (a) extending the bond valence method of analyzing crystal structures to provide a general and rapid method of simulating crystal structures and (b) development of a general theory of the topology of infinite periodic nets. The latter will be used particularly for the computer identification and classification of structures.